Structures, Dynamics, and Electronic States in Quasicrystalsand Small Clusters: Nuclear Magnetic Resonance Studies

This is an nuclear magnetic resonance (NMR) study of the structure, dynamics, and electronic states in quantum-confined small clusters and icosohedral alloys. The research will involve development of sophisticated NMR techniques that will allow the resolution of atomic environments characteristic of interior atoms in clusters as well as surface atoms. By separately monitoring the interior and the surface, it will be possible to understand the bulk and surface melting process and to investigate the lattice dynamics near the melting point. Th double resonance technique and refinements thereof wil be used to study host-guest interactions between inclusion clusters and molecular sieve frameworks, such as aluminophosphate sieve materials.